Christoffel functions and applications

This is a three year program in classical analysis, in particular in potential theory with applications in approximation theory and orthogonal polynomials. A common unifying theme is the behavior of Christoffel functions and reproducing kernels and their various applications. Another unifying theme is the so called polynomial inverse image method. The applications include fine zero behavior of orthogonal polynomials (with direct translation to eigenvalues of Jacobi matrices), universality results in random matrix theory/statistical physics and various polynomial inequalities. Other questions are related to non-classical orthogonal polynomials (with respect to doubling weights) and approximation by homogeneous polynomials and by their level sets. In several of these problems the polynomial inverse image method - that has already produced sharp and significant results in the past - will play a crucial role, and, in return, the tools to be developed will help us in better understanding this powerful technique. At the heart of the research will be the systematic usage of potential theory and classical harmonic analysis in the relatively distant areas of approximation theory and orthogonal polynomials.

The proposed study of various properties of orthogonal polynomials is aimed, by introducing there new tools, to advance a very classical field in mathematics (going back to over 200 years) which has multitudes of connections and applications. The results are relevant to other branches of mathematics, physics and engineering, as well. The research will stimulate interest in students and enhance research environment for them. Graduate and PhD students will have the opportunity to learn the fundamentals and powerful techniques of different disciplines, as well as their interrelations. Some of the results and methods will be integrated into related courses, which in turn may advance the professional development of K-12 science and mathematics teachers. Special emphasis will be made to outreach general public. This will be achieved by publishing educational articles, thereby offering understanding and appreciation for science. These educational materials, just as the findings of the research, will be widely distributed. Lectures will be held at different levels from undergraduate societies to professionals meetings.